An Undergraduate Parallel Processing Computer Laboratory

This project will develop an undergraduate computer laboratory in parallel processing. The laboratory will be equipped with an INMOS, forty processor, parallel machine which can be flexibly configured in either ring, mesh, shuffle-exchange, or hypercube architectures. IBM PC/AT compatible machines will be used for both the front-end and as a development system. Integrated with the laboratory will be a course on parallel processing covering the topics of architecture, algorithms, and programming languages. Topics on parallel processing will be integrated into the courses Analysis of Algorithms, Programming Languages, VLSI Design, Graphics, and Simulation.